Acquisition of a Circular Dichroism Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Boston College will purchase a circular dichroism spectrometer. This instrument will be used for characterizing macromolecules and small molecules in solution. Specifically, the investigators will carry out investigations in a number of areas, including a) recognition and catalytic processes of nucleic acids; b) mimicking photosystem (II) water oxidase; c) dinitrogen fixation catalysts; d) metal binding peptides as models for metalloenzymes; e) DNA mediated electron transfer; f) allosteric regulation of enzymes; g) interfacial activation of phospholipases; h) osmoregulation in archaea; i) minimal enzymes for asymmetric catalysis; j) conformational control over enantioselectivity; and k) the role of protein conformation in amyloidoses.

Circular dichroism is a broadly applicable technique, particularly in the area of bioorganic, bioinorganic and biophysical chemistry. While it does not provide high resolution structural data, it can provide vital data related to molecular interactions in chiral environments. It is an especially powerful tool in the analysis of the chiroptical and secondary structural analysis of proteins and nucleis acids.